Earthquake Engineering Research Community Workshop

This award provides funding to the University of Illinois at Urbana-Champaign to organize a national workshop to define the information technology requirements of the earthquake engineering research community for the NSF program entitled Network for Earthquake Engineering Simulation. This workshop will seek input from the earthquake engineering research community in the following areas: (1) access to shared use earthquake engineering research equipment, (2) supporting telecollaboration and teleoperation of the shared use equipment, (3) shared use of distributed heterogeneous data sets, (4) definition of new data types and metadata schemes, (5) use and sharing of simulation models, and (6) use of advanced visualization technologies and tools. The results of this workshop will be disseminated on the World Wide Web and in printed form.